Research on Optically Pumped Polarized Ion Sources and Targets (Physics)

Research will be carried out on optically pumped alkali vapor targets. This research is important for both polarized ion sources and targets. Research on low relaxation rate wall coatings for optically pumped Na, K, and Rb vapors will be carried out. Both liquid and solid coatings will be studied with emphasis placed on studing liquid coatings that are easily replaced by flowing fresh liquid and that may heal themselves when damaged. Research on the limitations imposed by radiation trapping on the density and polarization of an optically pumped alkali vapor target as a function of the magnetic field will be carried out. Both the relaxation rate and radiation trapping research is important for improving the optically pumped alkali vapor target used as the charge transfer target in the optically pumped polarized hydrogen ion source. Research on a spin exchange polarized hydrogen target for nuclear scattering is also proposed. Finally research on the prospects for the direct extraction of polarized ions from an optically pumped alkali vapor-hydrogen discharge is proposed.